Upgrade of NMR Instrumentation in a College Wide Facility

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program and the Office of Multidisciplinary Activities (OMA) will assist the Department of Chemistry at University of California @ Riverside to upgrade a 300 MHz and a 500 MHz NMR Spectrometer. This equipment will enhance research in a number of areas including the following: (1) total synthesis of natural products, (2) NMR characterization of pollutant transport through porous media, (3) structure-function played by H-bonded protons with large H-chemical shifts in the insulin hexamer, (4) conformation analysis and the relationship to biological activity, (5) stereochemistry of side chain crosslinking in peptides and proteins, and (6) synthesis, structural and biological studies of biomedically significant natural products. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.